Partial Support for Publication of Proceedings of the Workshop on Superconducting Super Collider (SSC) Experi- ments; Tucson, Arizona; February 19-23, 1990

This award supports a Workshop on Superconducting Super Collider experiments, organized by the University of Arizona in Tuscon Arizona, from February 19 - 23, 1990. The aim of the workshop is to plan future SSC experiments by the various university groups, who would like to contribute, and will include a discussion on major elementary particle detector concepts, elementary particle detector components, including central tracking, calorimetry, muon systems, mechanical systems and assembly, triggering and data acquisition.